Hydrographic Support to the South Atlantic Ventilation Experiment: (PROJECT SAVE)

Two campaigns to measure transient tracers in the Atlantic Ocean (TTO/NAS and TTO/Equatorial) were funded by NSF during the period from 1980 to 1985. A complete data base for modelling this ocean basin would include a South Atlantic Study to: 1.Determine CO2 transports and their influence on world climate, 2.Constrain models of major ocean currents in this area, and 3.Confirm an observed 5-fold increase in the addition rate of new carbon to the thermocline. Eight components of such a study (SAVE) will be performed by investigators from LDGO, Princeton, University of Washington, WHOI, and SIO. The track record of these scientists is well established by successful completion of previous studies in the Equatorial and North Atlantic. They will provide physical and chemical expertise which will be directed toward a cooperative effort to reach the goals of the geochemical study. This component will provide shipboard technical services and equipment for the collection, analysis, and recording of the data aboard ship and making available preliminary CTD data tapes to scientists at the end of each leg while final data processing, instrument calibration and the preparation of a printed report and 9-track data tapes will be carried out during the final years of the experiment.